Design Automation of Continuous-Time Transconductance-C Filters

The subject of this proposal is the design automation and rapid prototyping of analog systems with initial emphasis on integrated continuous-time filters, and uses the classical technique of signal-flow graph LC ladder simulation. To exploit the increased circuit density available in current technologies, it is important to extend the range of analog design automation to larger subsystems. By providing a methodology and software for the rapid- prototyping of integrated continuous-time filters from a high- level, behavioral description, this research provides system designers with a tool to design new, tunable and/or programmable integrated circuits for use in such areas as communications, mass storage devices, and other continuous-time analog interfaces to real world signals. Related and equally important areas of research addressed in this project for integration of continuous- time filters are tuning, compensation for parasitics, and scaling for dynamic range. The research is divided into three phases. Phase 1 concentrates on the manual and prototype software design and on MOSIS fabrication of CMOS TGC filters. In Phase 2, the experimental results in cross talk, signal feed-through, excess phase and tuning are used to refine the prototype software into a complete continuous-time analog filter synthesis tool. Phase 3 focuses on additional improvements of the software, such as optimization issues in the filter synthesis, on the number of identical transconductance macro-cells and capacitors used to realize a signal-flow graph simulation of an LC filter, use of multi-input transconductors, and other realization methods, such as element substitution and cascade of biquads.